Purchase of a 400 MHz NMR Spectrometer

This award from the Chemistry Research Instrumentation and Facilities program will help the Department of Chemistry at the University of Delaware acquire a 400 MHz spectrometer which will be used in the following research investigations: Structure Determination of Synthetic Peptide Analogs of G-Proteins; Peptide Model for B-sheet Formation; NMR Studies of Substrate Binding Sites of NAD-Dependent Isocitrate Dehydrogenase; Peptide Models of Small Tertiary Structures; Intramolecular Diene Cyclozirconation; Xe-129 NMR Spectroscopy of the Gas Sorbed in Zeolites; and Substituted Phosphonate Syntheses. Nuclear Magnetic Resonance (NMR) Spectroscopy is the most powerful tool available to the chemist for the elucidation of the structure of molecules. It is used to identify unknown substances, characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectrometry is essential to chemists who are carrying out frontier research. The results from these NMR studies are useful in areas such as polymers and catalysis, and in biology.